Studying Quantum Chromodynamics at LHCb

The protons and neutrons in the atomic nuclei of everyday matter are made of subnuclear particles called quarks and gluons. The project supported by this award will study how quarks and gluons scattered out of a proton or produced in high-energy particle collisions subsequently form new bound states. Data from the Large Hadron Collider at the European Organization for Nuclear Research (CERN) will be used to perform the research, as part of the Large Hadron Collider Beauty (LHCb) experiment. The research performed will advance our understanding of how strong-force bound states such as protons can be created, and the dynamics of their possible interactions. The project supported by this award will furthermore train multiple young scientists in nuclear physics. Training the next generation of nuclear physicists is critical to maintain expertise relevant to the nation's energy and defense needs and to continue advancing both applied and non-applied research in nuclear physics and technology. Specifically, this award will enable mentored research in nuclear physics on the LHCb experiment by four Ph.D. students, including on the use of artificial intelligence and machine learning techniques applied to nuclear physics. In the second year of the award, a student from Mount Holyoke College, a small undergraduate institution, will have the opportunity to perform summer research in nuclear physics at the University of Michigan. Moreover, the project supported by this award includes contributions to open data infrastructure, which will make even more of the worldwide-unique data from the LHCb experiment publicly accessible.

The PI’s group will study how high-energy color-charged quarks hadronize into sprays of observable color-neutral bound states by performing a suite of complementary measurements at LHCb probing quark flavor differences and baryon vs. meson production in multiple ways. Specifically, the measurements will compare energy correlators in jets initiated by light quarks versus beauty quarks; compare the distributions in jets of beauty versus charm baryons and beauty baryons versus beauty mesons; and examine evidence for contributions from string breaking versus quark coalescence models of hadronization via measurements of baryon versus meson production as a function of event multiplicity. Machine learning techniques will be used to try to perform the first-ever tagging of strange-quark jets in a way that does not bias the distribution of hadrons in them, using W boson decay. The proposed hadronization program will contribute toward the ultimate, long-term goal of being able to predict statistically the fully correlated distributions of particles from different flavor high-energy fragmenting quarks. The activities furthermore include contributions to the maintenance of the U.S.-led Upstream Tracker silicon detector for LHCb.